Investigation of Digital Shearography for Quantitative Non- destructive Evaluation of Large Structural Systems

This proposal will investigate the use of a novel optical technique called digital shearography to measure strains in materials to detect flows in structures, as a measure of the deterioration of the material.